Support for SUSY 2003 Conference; Tucson, Arizona

This supersymmetry conference will focus on the following topics: Formal Aspects of SUSY; SUSY Phenomenology, Experimental Searches and Bounds; Higgs Physics, Neutrino Masses and Oscillation, CP violation, GUTS, Formal Aspects of String Theory as well as astrophysical and Cosmological Connections. Speakers include Cumrum Vafa, Tony Tyson, Leonard Suskind, Ignatios Antoniadis, and representatives from several major experiments such as Tevatron Run II, Lep, and the B-Factory.